CAREER: Simulation of Lighting and Acoustics in Interactive Virtual Environments

The long-term goal of my integrated research and educational
plan is to develop interactive virtual environment sys-tems
supporting realistic aural/visual simulation of large 3D
models containing multiple interacting users.

Research Plan

The main objective of the proposed research project is to
develop efficient algorithms for simulating the propagation
of light and sound waves through a virtual environment by
scattering at surfaces of a 3D model. This research problem
is central to providing a realistic experience in an
immersive virtual environment, as its solution enables
global illumination and sound spatialization. It is also
significant for several other applications, including motion
planning, inverse modeling, scene capture, heat transfer,
radio power prediction, fire propagation, and traffic
analysis, which are all important in fields beyond immersive
virtual environments.

For simulations of both lighting and acoustics, the
fundamental problem is to compute a solution to an integral
equation expressing the wave field at every point in terms
of the wave field on surrounding surfaces. The main
difficulty is that the wave field has discontinuities due to
occlusions, caustics, and specular highlights, which induce
large variations over small portions of the integration
domain (i.e. surfaces or directions). Previous integration
methods based on radiosity and Monte Carlo path tracing are
generally not practical for typical virtual environments.

I plan to investigate a hybrid beam tracing and path tracing
approach. The general strategy is to trace beams that
partition the space of rays into topologically distinct
bundles corresponding to different sequences of scattering
events at surfaces of the 3D scene (reverberation
sequences), and then use them to guide sampling in an
interactive path tracing algorithm. The motivation for this
approach is that attributes of a relatively small number of
beams traced during the first phase can provide useful
information about the wave field that can be used to guide
and accelerate evaluation of samples during the second
phase. This approach enables efficient methods for: 1)
enumeration of reverberation sequences, 2) decomposition of
integration domain, 3) conservative approximation, 4)
spatial coherence in ray intersections, 5) sampling of
reverberation sequences, 6) progressive refinement, and 7)
off-line precomputation. The challenge is to develop methods
that trace beams through 3D models quickly and reap the
benefits of the traced beams in useful applications.

My research plan is to investigate hybrid beam tracing and
path tracing approaches to solve classical problems for
virtual environments. The new research contributions will be
made at four levels: theory, algorithms, applications, and
experiments. First, I plan to investigate new theory for
modeling wave propagation as a discrete set of reverber-
ation paths incorporating multiple scattering effects
including diffractions. Second, I plan to develop new
algorithms that efficiently find significant reverberation
paths with general types of scattering in general 3D models.
Third, I plan to investigate new applications where the
proposed approach for computing reverberation paths can be
used to solve classical problems. Finally, I plan to perform
experiments to evaluate the results of computed simulations
both quantitatively and qualitatively in comparison to
measured wave fields. The overall outcome of this research
will be a computational framework and a suite of methods for
computing general reverberation paths in general 3D models
and evaluating them in interactive applications.

Throughout this project, I plan to investigate the synergies
between sound and light and to apply the lessons learned
from one wave phenomenon to the other. Based on historical
precedent, I believe that it will be possible to develop
better simulations of virtual environments by studying both
sound and light together.

Educational Plan

The objectives of my educational plan are to teach students
and to develop new methods for education. In particular, one
special goal of mine is to enable the use of interactive
virtual environment systems in the educational process. I
plan to investigate this novel media for education by
designing new interdisciplinary courses that will allow
students and teachers from widely varying backgrounds to
learn about and experiment with virtual environment systems.
I also plan to develop new educational materials (textbook,
course notes, software tools, and 3D models), to mentor
students (graduate, undergraduate, and K-12), and to develop
outreach programs for disadvantaged people (mentoring under-
privileged students and deploying handicap-assisting
applications).

By both developing interactive virtual environment systems
for research, and investigating their use for teaching, my
research and educational activities are uniquely integrated.